Designing and Testing Companion Robots to Support Informal, In-home STEM Learning

Future educational robots are emerging as social companions supporting learning. By socially interacting with such a robot, learners can potentially reason and talk about the things they are learning and receive help in seeing the relevance of STEM in their daily lives. However, little is known about how to design educational robots to work with youth at home over a long period of time. This project will develop an informal science learning program, called STEMMates, in collaboration with a local community center, for youth with little interest in science. The program will partner learners with an in-home learning companion robot, designed to read books with youth and provide science activities for them at the community center, where youth will engage in exciting and personally relevant science learning. As the learner reads books, the robot will make comments about what is happening in the book to help connect the reading to the science activities at the community center. The overarching goals of STEMMates are to: (a) positively support youth's individual interest in science and future science learning, (b) connect in-home learning experiences with out-of-school community-based learning, (c) bridge the gap between formal and informal engagement and learning in science, and (d) encourage the participation of youth who are underrepresented and who have low interest in STEM learning. This project is funded by the Advancing Informal STEM Learning program, which seeks to advance new approaches to and evidence-based understanding of the design and development of STEM learning opportunities for the public in informal environments.

Researchers will work with youth and staff at the community center, alongside experts in informal science learning, to design the program and then test how learners respond to reading with the robot and participating in the science activities and whether this program has a lasting impact on their science interest. Social interactions with a robot may help distribute cognitive load during learning activities to help youth reason about STEM and also supplement learning by improving feelings of value and belongingness in order to facilitate lasting interest development. Following a mixed-methods research approach using qualitative and quantitative data-collection techniques, the research team will investigate the following research questions: (1) What social and interest-development supports and activities can be utilized as socially situated interest scaffolds in an informal and in-home, augmented reading and science activity program to promote individual interest and learning in science for low interest learners? How can a social robot best facilitate this program? (2) How do learners perceive and interact with the robot in authentic, in-home, long-term situations, and how does this interaction change over time? (3) Does working with a robot designed with socially situated interest scaffolds increase individual interest in science when compared to a pre-intervention baseline, and do these effects impact future (long-term) interest and engagement in formal science learning? To answer these research questions, researchers will implement the science learning program during an 11-week summer deployment and utilize an AB single-case research design. Interview-based qualitative data and self-report surveys to examine the learner’s perception of the robot and their evolving interest in science and quantitative data on science learning using pre-/post-measure comparisons will be collected. Log data of time-on-task, reading rate, book selection and reading goal attainment will also be collected by the robot. The outcomes of this project will lay the groundwork for future investigations of the design of social robots for a diversity of learner populations and their use in different informal learning settings.